Mathematical Sciences: Foundations and Applications of Bayesian Inference and Decision Theory

The proposal examines four topics in Bayesian nonparametric statistics. They center about a procedure described as A subscript n which assumes that there are (n+1) observed values of (n+1) random quantities. The observable random quantities are assumed to be exchangeable and ties among them are assumed to have probability zero. Given n of the observations the probability that the (n+1)st observation falls in one of the open intervals created by the ranked given observations is assumed to be the inverse of the number of intervals. (There are (n+1) intervals.) The first topic involves the development of a version of this procedure for multivariate observations. The second topic involves extending the use of the procedure to the evaluation of the posterior expectation of future observations. The fourth topic involves extending results for the procedure to the analysis of mixture data in the context of Bayesian data analysis. The third topic is the development of a theory of randomization from a Bayesian viewpoint.